Engineering Research Equipment Grant: Light Microscope and Image Analysis System

This award partially supports acquisition of a microscope and image processing system. The instrument will be used in studies of cell and cell fragment capture by fluidized particles within a magnetically stabilized fluidized bed. The research should help improve some separations processes relevant to biochemical processes.